Collaborative Research: Coastal Upwelling Circulation on a Wide Shelf: An Observational Study

0002885 / Yankovsky

The PIs propose a study of various aspects of shelf circulation in the
presence of coastal upwelling. Their approach is to conduct further
analysis using data collected and analyzed as part of a prior award.
The data are from an experiment on the continental shelf in the Middle
Atlantic Bight and included measurements from moored instruments,
repeated ship surveys, drifters and coastal radar. The goals are: to
examine the cross-shelf pathway of upwelled water; to determine the
structure of the mass budget and, in particular, to determine whether
it is 2D or 3D; to determine the potential vorticity budget; and to
determine the tidally rectified flow.